Faculty Early Career Development Program

The research study proposed here continues the process the principal investigator has already begun in building a theoretical framework for connecting in-school and out-of-school mathematics learning and practice and test framework. during this process will (a) investigate how middle school students use mathematics concepts and processes in a variety of out-of-school situations, and (b) work with two middle school teachers to develop curriculum ideas to facilitate connection making by students and investigate whether students are connecting their in-school and out-of-school mathematics learning and practice.